Conferences on Research on Technology in the Teaching and Learning of Mathematics

0087447
HEID

This project is organizing and conducting two, 2-day conferences on research on technology in the teaching and learning of mathematics. The first conference is an in-depth examination of a series of papers which summarize research on the impact of technology in mathematics education. The second conference is a conversation among researchers and authors of reform curriculum to discuss the implications of this research for development of more effective materials. The papers are being disseminated through publication of two books as well as through presentations at professional conferences.